A Theoretical Study of Nuclear Reactions and Nuclear Structure (Physics)

The project is a theoretical study of nuclear reactions at intermediate energies. Particular attention is given to calculating the effective nucleon-nucleon interaction for intermediate energy nucleons traversing a nucleus, and its effects on spin and charge transfer nuclear excitations.